Dialect Maintenance, Accommodation, and Development in Sociohistorical Isolation

This project examines the dynamics of dialect maintenance,
accommodation, and change in three contrastive insular settings
which vary in geographical location, contact dynamics, and
sociohistorical circumstances. Mainland Hyde County in coastal
North Carolina represents a longstanding, isolated bi-racial
community situated within a unique dialect area--the Outer Banks.
African Americans and European Americans have now lived
together in relative isolation for almost three centuries, thus
providing an opportunity to examine the role of local dialect in the
historical development of African American English. Cherokee
Sound, located on a remote peninsula of the Abaco region of the
Bahamas, presents a mirror image of Hyde County--a small
community of transplanted Anglo Americans who fled the United
States in the aftermath of the Revolutionary War and have lived in
relative isolation for two centuries surrounded by a majority Black
population speaking a distinctive Bahamian English variety.
Tristan da Cunha is the world's "loneliest island," located in the
South Atlantic 1500 miles from the nearest settlement. It was
settled by a small group (75-200) of British and American whalers
in early 1800s who then had virtually no contact with outside
groups for almost 150 years. Thus, it offers a perspective on the
development of language in a small community relatively free
from external language influence.

Sociolinguistic data in these different settings provide an ideal
empirical base for comparing the relative role of dialect
accommodation and innovation in contrastive insular language
settings and for examining the dynamics of ethnolinguistic
accommodation in contrastive situations. This study will further
our understanding of the fundamental principles that underlie
language contact, language innovation, and language maintenance.